Adaptive Transceivers for Wireless Networks

The PI is investigating methods for jointly adapting transmitters
and receivers in a wireless network. The objective is to optimize
performance by measuring and exploiting properties of the channel
and interference. Parameters adapted at the transmitter include
data rate and power, along with transmitted signatures, which can
span dimensions across space, time, and frequency. An important
part of this effort is to account explicitly for limited feedback
from the receiver to the transmitter. Both cellular and non-cellular
(e.g., peer-to-peer) wireless networks are being considered.
In the latter case, the PI is investigating methods for allocating
rate and power across degrees of freedom associated with
multiple antennas and links in a multi-hop network.

Joint power and signature optimization problems are being studied
both with perfect channel knowledge at the transmitter, and with
limited feedback. Signature optimization serves to avoid interference while
simultaneously exploiting channel conditions.
Solutions to problems with perfect channel knowledge
provide benchmarks for comparisons with suboptimal transmission schemes,
e.g., when channels are unknown. Channel models of interest include
multiple access (reverse-link) and forward-link channels, and
the uncoordinated multi-input/multi-output channel, which models
a peer-to-peer network. Transmitter optimization is being studied
in the context of both direct-sequence spread spectrum and
multi-carrier signaling. Implications for joint transmitter-receiver
adaptation over time-varying channels are being considered.
Transmitter designs, which can exploit link diversity in a
simple multi-hop channel model, are also being explored.